PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to Elizabeth R. Chen is "Discrete Geometry: a visual exploration of packings, fractals, symmetry & scientific applications." The host institution for the fellowship is Harvard University, and the sponsoring scientist is Dr. Michael P. Brenner.